Small Grants for Exploratory Research: Desalination Using High Frequency Electric Fields

Desalination of ocean water is a major way to provide fresh water to communities along coastal and arid regions. Desalination plants existing in these areas are typically either multi-stage flash evaporators or reverse osmosis operations. While both methods have advantages, there are also disadvantages that affect their efficiency. The use of a high frequency electric field for heating of salt water to accelerate evaporation would eliminate some of the disadvantages of the distillation methods of desalination. This method would reduce corrosion which is a major problem in the flash evaporators. Furthermore, this will allow for a rapid on-off operation of the system which would give better utilization of electric facilities. In this project, the evaporation kinematics of streamlets of brine under the influence of 100mHz electric fields is being studied. If the high frequency field significantly lowers the barrier to evaporation in the brine, this project may introduce a wholly new technology in the area of desalinating water for agriculture and human consumption.